An Introduction to Analog and Digital Electronics for Young Women and Young Men

Ball State University will offer two separate but identical two-week residential sessions on Introductory Electronics to 48 twelth grade students. The first session will be for girls only; the second for boys only. It is hoped that these somewhat unorthodox girls-only/ boys-only programs will provide educational opportunities for all interested applicants as well as offer an incentive to attract young women into a traditionally male dominated field. Emphasis will be placed on the application of electronics to science and laboratory activities will constitute approximately 50% of the program schedule. In addition students will construct their own computer interface. As a follow-up project, they will use these interfaces to perform two experiments in their home school and send reports of their results to the project staff.